Isotope Ratio Mass Spectrometers for Biological and Environmental Research and Training at the University of Wyoming

This award provides partial support of the of two new stable isotope ratio mass spectrometers to be placed in the University of Wyoming Stable Isotope Lab. This will be the only facility in the state capable of analyzing stable isotope ratios of the light elements (H, C, N, O,and S). The two isotope ratio mass spectrometer systems will be coupled with peripheral devices for automated and rapid sample processing and will be fully capable of accepting additional peripheral systems as needed in future applications. The instrumentation will augment the capabilities of this lab by providing the means for analysis of the isotopic composition of atmospheric trace gases and of organic substances and microwater (<1mL) samples. The new instruments will enable the Stable Isotope Lab to meet a growing demand for stable isotope ratio analyses from researchers at the University from elsewhere in the state and region. Among the immediate uses of the new instruments will be investigation of the physiological responses of plants and animals to environmental change, organism-environment interactions across space and time, food-webs and feeding patterns in terrestrial, aquatic, and marine systems, biogeochemistry in terrestrial and aquatic ecosystems, hydrological flow paths in arid and semiarid landscapes and biosphere-atmosphere interactions. In addition to their use in research, the instruments will be used to enhance the training and educational experiences of undergraduate and graduate students, postdocs, and visiting scientists at the University of Wyoming. The users of the facility are committed to bringing cutting-edge analytical approaches to traditionally underrepresented student, advanced researcher, and faculty groups on campus.